CAREER: Excited-state Symmetry Breaking as a Sensitive Tool for Measuring Electric Fields in Solutions and at Interfaces

Professor Alexei Kananenka at the University of Delaware is supported to develop theoretical and computational approaches to design experiments for accurate measurement of microscopic electric fields in complex and heterogeneous chemical surroundings, including condensed-phase and interfacial systems. Electric fields can be measured indirectly through shifts in the vibrational frequency of certain chemical groups, such as nitriles or carbonyls, and interpreted in terms of the vibrational Stark effect (VSE), according to which the frequency shift is a linear function of the local electric field. However, VSE alone cannot account for frequency shifts arising from specific solute-solvent interactions, at electrochemical interfaces, or in electrolyte solutions. Professor Kananenka and his students will develop new computational tools to study excited-state symmetry breaking (ESSB), which is much more sensitive to the local electric fields than VSE. Through atomistic simulations, they will determine the fundamental mechanisms of ESSB and design experiments that yield accurate information on the strength and directionality of electric fields in interfacial and condensed-phase systems. These advances will deepen the fundamental understanding of ESSB-based approaches for sensing local chemical surroundings in systems of broad technological relevance, including electrolyte-electrode interfaces, battery electrolytes, and catalysts. Professor Kananenka also plans to develop an artificial intelligence (AI) based learning tool for K-12 students studying the fundamentals of photophysics.

The proposed work will center on the development of advanced, flexible, and polarizable force fields for atomistic simulations of condensed-phase systems. ESSB will be investigated in symmetric quadrupolar molecules comprising an acceptor-pi-donor-pi-acceptor motif that additionally incorporate vibrational reporters throughout their structure to monitor symmetry breaking through changes in vibrational frequencies upon electronic excitation and relaxation. To connect molecular dynamics simulations to experimental observables we will develop vibrational spectroscopic maps that relate instantaneous atomistic surroundings to vibrational frequencies, transition dipole moments, and polarizabilities. These simulations will draw on a wealth of available transient absorption spectral data for symmetric quadrupolar molecules to elucidate the fundamental driving forces and mechanisms of ESSB. Furthermore, our simulations will be used to test the accuracy of the ESSB-based approach in sensing electric fields at electrified interfaces and in complex heterogeneous systems such as battery electrolytes. Building on prior use of VSE to measure electric fields near enzyme active sites, they will apply highly accurate excited-state quantum chemistry methods to investigate ESSB in small molecules that can potentially be incorporated into biological systems, providing more accurate information on the local electrostatic setting that govern catalytic activity of enzymes.